Student Support for the 2002 Gaseous Electronics Conference

This proposal provides support for student travel to and participation in the 2002 Gaseous Electronics Conference. The conference is being held at the University of Minnesota on 15-18 October, 2002. Part of the student activities at the conference will include the selection of a GEC Student Award for Excellence.